Technicians 1997-1999

9701356 McDuff This award to University of Washington provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Thomas Thompson, a research vessel operated by the University of Washington School of Oceanography as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct a diverse suite of oceanographic studies in the North Pacific Ocean in 1997. ***